Meeting the Demand for Secondary STEM Teachers in Rural and Urban High-need School Districts in Kansas and Missouri

Baker University (BU) proposes the creation of the Advancement of STEM Teaching and Retention Academy (ASTRA) project under Track 1 of the Robert Noyce Scholarship and Stipend Program, with the goal of recruiting and supporting 20 new STEM teachers in Biology, Chemistry, and Mathematics to work in two high-need school districts in urban areas (Grandview Consolidated School District #4 and Topeka Public Schools). Located in Baldwin City, Kansas, approximately 45 minutes from the greater Kansas City metropolitan area, BU rests at the intersection of rural and urban America. The ASTRA project will meet the growing demand for highly effective secondary STEM teachers in both rural and urban high-need school districts in Kansas and Missouri, equipping Noyce Scholars with additional opportunities to meet curricular requirements within a four-year period while having opportunities to develop the soft skills and professional competencies necessary to succeed in diverse learning environments.

The project objectives are to (1) recruit, retain, and graduate 20 Noyce Scholars pursuing STEM degrees with teacher licensure in biology, chemistry, and mathematics over the five-year period; (2) place 100% of Noyce graduates in high-need school districts and support them to complete their Noyce teaching obligation; (3) improve STEM teacher candidates’ sense of preparedness for the classroom by introducing enrichment opportunities in which Noyce Scholars acquire more pre-service teaching experiences, professional development opportunities, and mentorship with in-service teachers; and (4) increase knowledge about the different causes of STEM teacher attrition in rural and urban school districts and develop strategies to address this issue. These objectives will be achieved through an innovative mentorship program pairing Noyce Scholars with active in-service teachers and peer mentors; a series of modules focused on developing soft skills, learning more about student-centered pedagogies, and addressing current issues in STEM education; online courses offered between academic terms; and several induction supports designed to sustain graduates of the program. Project outcomes and evaluation will generate evidence about successful programmatic elements that may be replicated at similar institutions. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the persistence, retention, and effectiveness of K-12 STEM teachers in high-need school districts.